Dissertation Enhancement in Japan: Neutrino Astrophysics with the Super-Kamiokande Detector

9504114 Wilkes This dissertation enhancement award supports a 6-month research visit in Japan for Andrew Stachyra, a graduate student in the Department of Physics at the University of Washington, who works under the direction of Professor R. J. Wilkes. Mr. Stachyra will divide his time among three different research sites over the course of his six month stay in Japan, during which he will be sponsored by the Professor Yoji Totsuka, the head of the Super-Kamiokande Group at the Institute for Cosmic Ray Research (ICRR) in Tokyo. Super-Kamiokande is a water Cherenkov detector to be located in the Kamioka Mozumi mine in Japan. Super Kamiokande is expected to provide new information that will be useful in the study of neutrino oscillations, in solar modeling, in supernova modeling, and in setting new limits on nucleon decay partial lifetimes. Mr. Stachyra will spend approximately one month at the ICRR learning how the Japanese data acquisition equipment works, two months at the KEK particle accelerator learning about and contributing to calibration experiments being conducted with a smaller Cherenkov detector there, and about three months will be spent at the mine site learning the details of detector construction before data taking begins in April of 1996. Mr. Stachyra will learn the Japanese style for constructing electronics for high energy physics experiments and will be able to compare the Japanese system with the U.S. system. He will be able to compare the advantages and drawbacks of both systems and learn when one is preferred over the other. ***